Collaborative Research: AF: Topology as an Algorithmic Tool: Efficient Fixed-Point Methods

Many problems critical to national security and economic welfare, including ensuring connectivity in power grids, robustness of supply chains, and reliability of communication networks, reduce to finding a substructure in a network that ideally balances benefits and costs. For many such problems, mathematicians have developed powerful techniques for proving good solutions exist using ideas from topology, the mathematical study of shape and connectivity. However, these proofs only establish that good solutions exist without providing a practical method for actually finding them. By contrast, computer scientists have successfully converted a related family of probabilistic existence proofs into efficient algorithms, yielding practical computational solutions for many critical problems. This project undertakes the analogous program for topological methods, that is, the goal is to develop a method to systematically convert topological existence proofs into efficient algorithms, yielding practical computational solutions for a broad new class of critical problems. The project will develop and freely release instructional modules using large-language-model tools to lower barriers to learning programming for high school, undergraduate, and non-technical graduate students nationwide.

The academic component of the project contains three complementary thrusts. The first thrust is to make topological fixed-point methods accessible to algorithmic researchers. The bottleneck in applying topological proofs is often the step of verifying that a given set system has high topological connectivity. This is a concept that is standard in topology but foreign to most algorithmists. The goal is to develop combinatorial surrogates for these connectivity arguments: graph-theoretic and local expansion conditions that imply the topological properties, but that algorithmic researchers can recognize and prove without specialized training. This accessibility push is critical for bridging the cultural gap between topology and algorithms. The core of the topological existence proofs is the use of Sperner’s lemma, which under some conditions guarantees the existence of a substructure of a particular type. The second thrust is to develop a constructive Sperner's lemma that is an efficient algorithm that will, perhaps under additional mild preconditions, find such a substructure in polynomial-time. Such a result would constitute a broadly applicable meta-tool for turning topological existence proofs into efficient algorithms. As jumping directly to a constructive Sperner’s lemma may be overly ambitious, the third thrust develops efficient algorithms for particular problems where only topological existence proofs are currently known, but where the investigators believe efficient algorithms can be discovered. By developing constructive algorithms in these settings, the project will build a repertoire of algorithmic techniques that suggest the right strengthening of Sperner’s lemma.